Purchase of Departmental Computer Facility

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at University of California at Los Angeles to acquire a Silicon Graphics Power Challenge L and four workstations. This equipment will enhance research in a number of areas including the following: (1) theoretical studies of organic and biochemical reactions, (2) developing new quantum molecular dynamics codes and studies of molecules and reactions on surfaces, (3) development of new methods for fast and accurate protein crystal structures, (4) studies of cluster quantum dynamics, and (5) statistical mechanics for the study of polymers and fluids. A workstation network of fast modern computer workstations is a new way to satisfy the computing needs of chemistry departments. Such a "computer network" also serves as a development environment for new theoretical codes and algorithms, provides state-of-art graphics and visualization facilities, and supports research in state-of-the-art applications of parallel processing.